Comparative Biochemistry of Non-Mammalian Pituitary Hormones

Dr. Harold Papkoff plans to continue his important studies on the isolation and characterization of pituitary hormones from the pituitary glands of a number of lower vertebrates (birds, reptiles, amphibians and chickens). These hormones are the factors that regulate growth, development and the reproductive cycle in these organisms. Over the past few years, Dr. Papkoff has developed procedures for the purification of these important hormones and has supplied them to comparative endocrinologists working on reproduction and growth in these animals. In this proposal, he plans to characterize the pure hormones in terms of their amino acid sequences, the nature of any carbohydrate side chains that may be part of the molecules and the physical nature of the hormone molecules in terms of their shape and steric orientations. These latter studies are particularly important because they may lead to a better understanding of the differential biological potency or reactivity of these hormones in the different biological systems. This information is critical to understanding hormone action at the molecular and cellular level and in the design of drugs or hormones that could be used to regulate growth and reproductive process in all vertebrates.